Geometric Phenomena in Homotopy Theory

DMS-0072300
Igor Kriz

The aim of the present project is to study certain connections
between mathematics and mathematical physics. The area of mathematics
concerned is Algebraic topology, which employs methods of algebra
to investigate properties of topological spaces (shapes) which remain
unchanged (invariant) under continuous deformation. Among such
properties or invariants, a distinguished role is played by certain
invariants of linear nature, known as generalized cohomology theories.
The main goal of this project is studying interpretations and
interactions of such cohomology theories with certain areas of physics,
geometry and algebraic geometry (spaces of solutions of algebraic
equations).

Concretely, the investigator focuses on two areas. The first object
is finding a geometric (or physical) model of elliptic cohomology.
It is conjectured that elliptic cohomology can be recovered by
infinite loop space theory from a category of holomorphic
conformal field theories. The other area concerns the study of
Morava K-theories in a homotopy category of algebraic varieties
introduced by Voevodsky.